Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring

Stevens Institute of Technology, Office of Women's Program
Susan Metz
HRD-9814734
The Office of Women's Programs (OWP) at Stevens Institute of Technology has offered a wide array of mathematics, science and engineering programs over the past 20 years at the precollege and college levels in support of women. OWP has also served as a national model, developing and implementing several initiatives to provide other colleges and universities with resources, curricula, materials, and technical expertise to effectively mentor students and increase the representation of women in engineering in the U.S. Over 17,000 young women in grades seven through eleven have participated in OWP engineering and science career awareness programs.